Planning Grant for the Southeast Michigan Alliance for Reinvestment in Technological Education (SMARTE) Center

The Southeast Michigan Alliance for Reinvestment in Technological Education (SMARTE) is planning for Center of Excellence to develop a comprehensive "blue print" of a regional advanced technological education center. The project brings together a diverse team consisting of faculty, teachers, and staff members of a major state university, community colleges, and public school systems, and regional business, industry, and labor partners.The seven objectives are: (a) Assess the feasibility of establishing educational standards on a regional basis. (b) Explore assessment models. (c) Identify models of integration of math and science for technological education. (d) Explore model curricula that integrate other competencies such as problem-solving, systems thinking, communications, work habits, etc. (e) Evaluate the feasibility and effectiveness of distance learning and alternative methods. (f) Define the professional development needs of the faculty and teachers. (g) Define how community college faculty and high school teachers partner with business, industry, labor and community organizations to design curriculum modules and methodology that will serve the needs of all partners.